Ethnography of Indonesian Cultural Psychology

This project involves several cultural anthropologists from Harvard University in a study of the cultural psychology of mental illness in Indonesia. The researchers will translate two standard instruments used in psychiatric diagnosis and, working with local Indonesian personnel, will use the process of translation to generate a lexicon of psychiatric symptoms, idioms of distress and popular illness categories. The instruments will be used in a discovery procedure to examine local conceptions and behavior. They will also analyze the semantic networks relevant to mental illness. The researchers will examine popular narrative forms for telling stories of illness and care-seeking in two domains: depressive illnesses and psychoses. In addition the researchers will examine how Indonesian psychiatry manages mental illness in the context of Indonesian culture and society. This research is important because it will provide a comparison for the US and western model of normal social behavior and mental illness. Comparative studies such as this are important because they help researchers understand which aspects of the western models are of fundamental human and biological origin and which are of social and cultural origin.